US-France Cooperative Research: Electrochemical Preparation of Nanowires and Mesowires for Chemical Sensing.

0233371
Penner

This three-year award for US-France collaboration in chemistry supports annual visits by a US graduate student to France. The project is led by Reginald M. Penner of the University of California at Irvine and Frederic Favier of the University of Montpellier 2. The objectives of the research are: (1) the synthesis of nanowires composed of two metals; (2) the development of methods for attaching receptor molecules to the surface of metal nanowires; and (3) the evaluation of nanowires as chemical sensors. The project takes advantage of a method, developed by the French investigator, for synthesizing metal nanowires. The US investigator brings to the collaboration expertise in electrochemical methods and electrodeposition of nanowires and mesoscale particles. The US graduate student will benefit from training in synthetic procedures developed in the French laboratory.

This award represents the US side of parallel proposals to the NSF and the CNRS. NSF will cover travel funds and living expenses for the US graduate student. The CNRS will support visits by French researcher to the United States.